Rate Processes in Two-Dimensional Self-Assembly of Nanoparticles

Abstract
CTS-0113016
P. Neogi, University of Missouri-Rolla

Self-assembly of nanoparticles in 2-D and 3-D structures continues to receive considerable attention due to the potentially unique optical and electronic properties that can be achieved. The proposed work is on a variety of experimental and computational simulation methods to study the rate of surface diffusion and formation of the 2-D gold nanoparticles. The thin layer will first be formed with a droplet, and later in the project with a spin-coater for this study. A number of techniques, such as small angle neutron scattering, atomic force microscopy, dynamic light scattering, and quasi-elastic light scattering are proposed for this study. The computational simulations based on molecular dynamic simulations for single and two-particle interaction followed by large scale Brownian Dynamic simulations are proposed.